Symposium on Cognitive and Computer Science: Mind Matters; October 25-27, 1992; Pittsburgh, PA

This Symposium entitled, Mind Matters, held at Carnegie Mellon University on October 25-27, 1992 features unpublished papers of a technical nature describing original research in the areas of computer science and cognition. It is held in honor of Allen Newell, who has made seminal contributions to computer science and cognitive science . He is generally regarded as one of the founding fathers of the field of artificial intelligence. Dr. Newells research for the past decade has focussed on the development of SOAR, as both an integrated architecture for building intelligent systems and as a unified theory of cognition. Soar is the unifying thread for this symposium. A member of the Soar community follows each invited speakers talk, discussing the implications of the results just presented for the Soar architecture. The speakers, leading scholars in computer science and cognitive research, and their topics are chosen to reflect the diversity of Professor Newells interests. The proceedings of the symposium are to be published as a book by Lawrence Erlbaum Publishers, as part of their Carnegie Symposium on Cognition series.